Undergraduate Research in Elementary Particle Physics, Accelerator Physics, and Synchrotron Radiation Science REU Site

The Cornell University Laboratory of Nuclear Studies offers a summer program for Undergraduate Research in Elementary Particle Physics, Accelerator Physics, and Synchrotron Radiation Science. The Laboratory of Nuclear Studies at Cornell University will offer ten undergraduate students per year the excitement and challenge of frontier research in the area of elementary particle physics, accelerator physics and synchrotron radiation science. These students, selected from colleges and universities throughout the United States, will spend ten weeks of the summer working at the world class facilities of the Cornell Electron-positron Storage Ring (CESR), the CLEOIII particle detector and the Cornell High Energy Synchrotron Source (CHESS). In addition to working closely with physicist mentors, they will participate in seminars, lectures, tours and activities designed to promote interactions among undergraduate researchers. The participants will receive travel and lodging allowances as well as a summer stipend.